Syntax and Semantics of the Ergative Construction

ABSTRACT This project is designed to produce detailed description of the syntax and semantics of the ergative construction in four morphologically ergative languages, Basque, Greenlandic Eskimo, Hindi, and Warlpiri, each of which has an ergative case system. The objective is to develop, in the context of a single theoretical framework, an explanatory account of certain syntactic and semantic phenomena characteristic of this important linguistic type. The theoretical framework of the project is a combination of the Government and Binding theory and a version of model-theoretic semantics. The research on the four languages systematically examines the ergative construction in relation to each of the principal levels of syntactic representation -- Logical Form, S-structure, and D-structure -- and in relation to the phenomenon of free word order, characteristic of the languages of the project. While the four languages are reasonably representative of their type, the sample is restricted, and the project seeks to off-set this by incorporating three ancillary activities: a survey of the literature on Mayan ergativity (represented in agreement morphology only, rather than case), a semester-long seminar on ergativity, and a colloquium series on ergativity. A book on the theoretical position of morphologically ergative languages is included as an integral part of the project.